Research in High Energy Theoretical Physics

Research in theoretical physics will include (1) an investigation of algebraic and geometric aspects of mathematical structures in superstring theory and (2) studies of the strong interactions through the use of high performance computer simulations. Superstring theory is a very promising approach to unifying all the known fundamental interactions in Nature. It may also provide an understanding of the origins of the Universe. Computer simulations of the strong interactions are essential for extracting several of the fundamental constants of Nature from high precision experimental measurements. Knowledge of these constants places strong constraints on unification schemes. Computer simulations will also be used to learn about interactions of quarks and gluons, the fundamental constituents of matter, at temperatures that may have occurred in the early moments of the formation of the Universe.